Periodicity Phenomena at the Chromatic Edge, the Chromatic Splitting Conjecture, and the Chromatic Segal Conjecture

9971850
Sadofsky
The ``chromatic splitting conjecture'' of Mike Hopkins concerns a
decomposition of the localization with respect to the (n-1)st
Johnson-Wilson theory of the localization with respect to the nth
Morava K-theory (of a finite CW-complex). This is a useful step in
trying to understand stable homotopy theory, since the decomposition is
expressed in terms of simpler localizations. In particular, the
conjecture would generalize the very beautiful relationships known
between the 0th, 1st, and 2nd chromatic levels. Similarly, the
``chromatic Segal conjecture'' (due in various forms to combinations of
Mike Hopkins, Mark Mahowald, and Doug Ravenel) deals with a
decomposition of the Tate cohomology of the localization of a finite
CW-complex with respect to the nth Morava K-theory. Again, this
conjecture intertwines different chromatic levels in a beautiful way;
together they give some techniques for inductively determining
information about higher chromatic levels from lower ones (like
rational homotopy theory and K-theory). These conjectures both also
give data about how the cohomology of the different Morava stabilizer
groups are related. The tool used to attack these conjectures is a
spectral sequence based on ideas from work of Goerss that computes the
BP-homology of various spectra involved in this calculation in terms
of the derived functors of inverse limits of comodules over the Hopf
algebroid of BP-operations. Surprisingly, at least in the first
interesting cases, the higher inverse limits seem to be tractable.
This research is concerned with understanding ``homotopy classes of
functions.'' A simple example of the sort of problem studied is given
by considering knot theory. Take a ``knot'' in space to be a loop of
string embedded in space in some way. One is not really interested in
*all* ways of embedding that loop of string; if one can get from one
way of embedding the loop to another just by moving the string a
little bit, one considers those two embeddings to be equivalent.
Similarly, if one looks at all ways of putting a loop of string in the
plane with the origin removed, one considers two ways the same if the
loop of string is wound around the origin the same number of times.
As the second example makes clear, it is critical to understand
``holes'' in the space to which one is mapping, and how the space from
which one is mapping interacts with those holes. There are different
sorts of holes, though; a circle has a hole one can pass something through,
while a (hollow) sphere has a different sort of hole. The ``holes''
associated to a map (or to a space) can be sorted into different
flavors (usually referred to as different chromatic components).
These components do not appear to be independent for spaces and maps
arising from geometric considerations, and the goal is to understand
these dependencies. Solutions to this sort of problem are potentially
related to questions from geometry, but at the same time, surprisingly,
to objects arising in number theory, something that gives this work far
greater importance than would either aspect alone.
***